Experimental Studies of Correlation Effects in Quantum Insulators

9510355 Popovic During the grant period several problems in quantum insulators will be explored on small Si metal-oxide-semiconductor field-effect transistors fabricated at IBM. Issues that will be studied include: (1) Kondo impurity vs Coulomb blockade in disordered hopping and tunneling systems, (2) statistics of localized states and noise in correlated insulators, (3) lineshape of resonance peaks in correlated insulators, (4) direct measurement of resonant tunneling and hopping conduction via two different paths, (5) Hall effects and magnetic field driven metal-insulator transitions in Kondo systems, (6) length scales associated with quantum interference in correlated insulators. The experiments will comprise linear and non-linear transport meassurements in zero magnetic field and in non-zero field. Equilibrium and shot noise experiments will be analyzed in terms of recent theoretical developments about noise and the response of correlated systems to shed new light on the problem of correlated electron transport in quantum insulators. %%% During the period of this award, recently discovered behavior in very short transistors that cannot be understood in terms of the conventional physics of electronic devices will be explored through a variety of experiments. The research will be centered on electronic quantum transport (discrete moverment of electrons) in submicron-size silicon transistors (one micron = 40 millionths of an inch). One focus of this effort will be nonlinear effects (the quality which gives any transistor the ability to amplify), which are also significant for a wide variety of applications. This research project will be a university-industry collaboration among three institutions: the measurements will be performed at the City College of CUNY and the University of North Carolina at Chapel Hill, and the transistors will be fabricated at t he IBM T. J. Watson Research Center. ***